ITR/AP+IM: Computational Tools for Modeling, Visualizing and Analyzing Historic and Archaeological Sites

e are proposing to develop computational tools for researchers
and students to model, visualize, and analyze historic and ancient
sites. This proposal addresses four major scientific components
to support this research. First, we are proposing new methods
of creating complex, 3-D, photorealistic models of large sites.
This includes a mobile robot sensing system that can be used as
an intelligent sensing device over a large scale. Second, we are
proposing to develop new methods to image below-ground data accurately
and efficiently. These methods are especially suited to modeling
the wealth of subsurface information at archaeological sites.
Third, we will be developing new database technology to catalog
and access a site's structures, artifacts, objects, and historical
references. This will significantly improve a user's ability to
query and analyze a site's information. Fourth, we have created
a wearable augmented reality system for presenting georegistered
information to mobile users, using overlaid graphics and sound.
We will extend this system to create a new class of information
visualization systems that integrate 3-D above- and below-ground
models, 2-D images, text and other web-based resources to annotate
the physical environment We will apply this system to support
scientists in the field, as well to allow on-site and remote tours
of historic and ancient sites. The research will utilize a local
testbed, the Cathedral of St. John the Divine in New York City,
and a unique and important archaeological excavation at the Dakhleh
Oasis in Egypt. The project will attract students and the public
to the study of world heritage; provide an exceptional opportunity
for active learning; and develop our ability to explore, analyze,
critically evaluate and interpret material culture within historical
contexts. The challenge is to bring the on-site experiences that
develop these skills to the classroom and the public in general.
Through critical inquiry and a variety of techniques, teachers
and students can reconstruct examples of material culture to develop
a complex understanding of the past. In this way, we can resist
the temptation to replicate with new technologies what we have
done successfully with other means and instead expand the possibilities
for learning. Through learning in context, this project will bring
together the primary sources of various fields and draw the social
sciences out of the classroom into the historical milieu. This
project will hopefully redefine the relationships among technology,
faculty research and curriculum content. Most important, it will
disseminate this information to as wide an audience as possible.